Preparing Highly Competent Electronic Technicians in Manufacturing, Communication and Information Technologies

This is a three-year project to enhance the preparation of underserved students for employment in the fields of manufacturing communications and information technologies industries. The design to do this is to improve the teaching and learning process in participating institutions by incorporating technology-based curricular materials, preparing faculty in effective teaching practices, and developing work-related technical learning experiences for faculty and students. This initiative is building directly on the
existing School to Work Program (STWP) in the area of high technology. . The lead institution is the University of Puerto Rico (UPR) at Aguadilla. Other partners are UPR at Humacao and Bayamon, two 4-year institutions of the UPR system, 26 public high schools currently participating in the STWP, and an array of local high-tech industries. The project is serving 150 faculty members and teachers.